Workshop for Graduate Students on Communicating Science - Durham, NC - July 14-17, 2012

This project will partially fund a half-day workshop on communicating science to the public and media and is geared toward graduate students and postdoctoral research scholars. The workshop will include sessions on the importance of communicating science, and exercises to allow participants to practice communication skills.
The workshop will improve communication among disciplines within science as well and increase scientific outreach to the general public.